Teachers' Learning from Reform: The Case of Mathematics Instruction in California

Michigan State University will conduct a four-year study of teachers' learning from mathematics education reform efforts in California. The study will focus on four reform elements: tests, texts, professional development and the California Mathematics Framework. The professional development models to be studied are six exemplary NSF- funded Teacher Enhancement projects. The study will attempt to answer such questions as how teachers change and learn in response to current reform movements, what influences their learning, and how do teachers' personal and professional biographies affect what they learn. In all 102 elementary school teachers will be studied, thirty intensively and 72 less intensively. In addition, a mail/telephone survey will be conducted with 800 California elementary teachers to investigate more broadly the influences of policy on teacher thinking and practice, to gather information on the understandings, ideas and practices of a larger group of elementary teachers, and to contribute to the development of indicators useful to studying change. The survey will also allow the PIs to place the teachers whom they had observe in depth in the context of a representative sample of California teachers. From the study, case studies and evaluation instruments will be developed which will contribute to innovations in teacher education, teacher change, and reform. In studying the change process, this project has great potential for stimulating the construction, investigation, documentation and refinement of effective approaches for teacher enhancement. MSU's cost-sharing accounts for 12% of the NSF budget.